Collaborative Research: Chemoautotrophy in Antarctic Bacterioplankton Communities Supported by the Oxidation of Urea-derived Nitrogen

Part 1: Nitrification is the conversion of ammonium to nitrate by a two-step process involving two different guilds of microorganisms: ammonia- and nitrite-oxidizers. The process is central to the global nitrogen cycle, affecting everything from retention of fertilizer on croplands to removal of excess nitrogen from coastal waters before it can cause blooms of harmful algae. It also produces nitrous oxide, an ozone-destroying, greenhouse gas. The energy derived from both steps of nitrification is used to convert inorganic carbon into microbial biomass. The biomass produced contributes to the overall food web production of the Southern Ocean and may be a particularly important subsidy during winter when low light levels restrict the other major source of biomass, primary production by single-celled plants. This project addresses three fundamental questions about the biology and geochemistry of polar oceans, with a focus on the process of nitrification. The first question the project will address concerns the contribution of chemoautotrophy (based on nitrification) to the overall supply of organic carbon to the food web of the Southern Ocean. Previous measurements indicate that it contributes about 9% to the Antarctic food web on an annual basis, but those measurements did not include the additional production associated with nitrite oxidation. The second question to be addressed is related to the first and concerns the coupling between the steps of the process. The third seeks to determine the significance of the contribution of other sources of nitrogen, (specifically organic nitrogen and urea released by other organisms) to nitrification because these contributions may not be assessed by standard protocols. Measurements made by others suggest that urea in particular might be as important as ammonium to nitrification in polar regions.

This project will result in training a postdoctoral researcher and provide undergraduate students opportunities to gain hand-on experience with research on microbial geochemistry. The Palmer LTER (PAL) activities have focused largely on the interaction between ocean climate and the marine food web affecting top predators. Relatively little effort has been devoted to studying processes related to the microbial geochemistry of nitrogen cycling as part of the Palmer Long Term Ecological Research (LTER) program, yet these are a major themes at other sites. This work will contribute substantially to understanding an important aspect of nitrogen cycling and bacterioplankton production in the PAL-LTER study area. The team will be working synergistically and be participating fully in the education and outreach efforts of the Palmer LTER, including making highlights of the findings available for posting to their project web site and participating in any special efforts they have in the area of outreach.

Part 2: The proposed work will quantify oxidation rates of 15N supplied as ammonium, urea and nitrite, allowing us to estimate the contribution of urea-derived N and complete nitrification (ammonia to nitrate) to chemoautotrophy and bacterioplankton production in Antarctic coastal waters. The project will compare these estimates to direct measurements of the incorporation of 14C into organic matter the dark for an independent estimate of chemoautotrophy. The team aims to collect samples spanning the water column: from surface water (~10 m), winter water (50-100 m) and circumpolar deep water (>150 m); on a cruise surveying the continental shelf and slope west of the Antarctic Peninsula in the austral summer of 2018. Other samples will be taken to measure the concentrations of nitrate, nitrite, ammonia and urea, for qPCR analysis of the abundance of relevant microorganisms, and for studies of related processes. The project will rely on collaboration with the existing Palmer LTER to ensure that ancillary data (bacterioplankton abundance and production, chlorophyll, physical and chemical variables) will be available. The synergistic activities of this project along with the LTER activities will provide a unique opportunity to assess chemoautotrophy in context of the overall ecosystem’s dynamics- including both primary and secondary production processes.